RUI: Evaluating the Divergence-with-Gene-Flow Model in Natural Populations

Smith 9726425 Tropical rainforests are renowned for their extraordinary diversity of species. Birds are prominent in this regard, as tropical rainforests contain a spectacular array of unique species having no parallel elsewhere. However, the specific evolutionary mechanisms that generate biodiversity are poorly understood. In this proposal, morphologic and genetic data will be gathered to test a new hypothesis for rainforest speciation. This hypothesis postulates that ecotones, small rainforest fragments that exist in the grasslands outside the central rainforest, are habitats in which new adaptations and new species appear that can enrich the biodiversity of central rainforests. Natural selection in ecotone populations of three rainforest bird species will be quantified and the morphologic divergence between them and central rainforest populations will be estimated. Although this study addresses fundamental evolutionary questions, it also has important conservation implications for sub-Saharan Africa. Centrally located rainforest areas are presently the main focus of conservation efforts, whereas ecotone regions are rapidly being lost due to overgrazing, burning and wood harvesting with little or no effort toward their conservation. Such ecotone regions are assumed to be less important because they are mosaics of pure habitat types that may contain fewer species and smaller, more unstable populations. However, it is possible that these transition areas between forest and savanna are important sources of evolutionary novelty that contribute to rainforest biodiversity. \\Clm-06\debpop\POPBIO\ABSTRACT\SMITH425.ABS